SBIR Phase I: Low-Temperature, Low-Cost Manufacture of Oxide Thin Films

This Small Business Innovation Research Phase I project will develop a rapid, low-cost, low-temperature, scalable, environmentally benign method for the deposition of crystalline oxide thin films. The specific Phase I goals are to demonstrate the feasibility of developing procedures for growing these specific high-quality thin-film crystals and to evaluate their crystal structure, optical properties and texture.

The commercial benefits of this type of processing method would revolutionize applications ranging from electronics to medicine to energy.